MRI:Acquisition of Instruments for Mobile Computing Research in the Context of Automotive Applications

This project, enabling a new class of communications applications that can support future transportation systems, aims at establishing a laboratory for interdisciplinary experimental research in wireless networking and mobile computing in order to develop expertise in theoretical and applied aspects within the context of the automotive applications. The research focuses in the development of:
-Physical layer prototypes for inter-vehicle communications;
-Routing protocols for inter-vehicle communications;
-Real-time traffic information system;
-In-vehicle database management system; and
-Cooperative driving system.
In vehicle computing presents a challenge for mobile computing research due to the very large number of nodes on the road and the high rate of topological changes. This work develops efficient and scalable algorithms for wireless communication, routing, mobile data management, information dissemination, and querying in the highly dynamic vehicular environments. Through collaborations with local industrial partners, integration of the research should result in commercial systems such as co-operative driving and in-vehicle data management systems.

Broader Impact: Creating new collaborative opportunities, this infrastructure should help in the areas of mobile computing and automotive applications. The concepts and procedures developed from this project will serve as topics for theses and senior design projects. New courses will continue to be developed; stronger ties with industry will surface. Moreover, the application of wireless technology into the automobile should result in vehicles with increased productivity, safety, and security.